Studies of Geometric Algorithms and Their Applications

This project investigates the geometric structure and develops efficient geometric algorithms for the following areas: (1) Arrangements and configurations, including the complexity of a single cell, zones and envelopes, space partitions, and of lines in space; (2) Geometric algorithms for robot motion planning, including motion planning for various systems with 3 degrees of freedom, planning based on generalized voronoi diagrams in 3 space, extremal placements and high-clearance motion; (3) Visibility problems in three dimensions, including output-sensitive hidden surface removal, and ray shooting and tracing; (4) Randomized techniques in geometry, including design and of randomized geometric algorithms, epsilon-nets, and of geometric algorithms; and (5) Applications and related problems, including k-sets in arrangements, union of geometric objects, geometric optimization, layout of graphs in the plane, incidence and distance problems, and transversal problems. A theme in many of the investigated research areas is the study of problems in higher dimensional space and involving curved (rather than flat objects in 2 or 3 dimensions). Such problems are much harder to tackle than problems traditionally studied in computational geometry, but are essential for many applications (such as those mentioned above). Another theme is the rich cross-fertilization between basic in computational geometry and the various application areas, problems in one area motivate the study of new basic problems solution in turn finds applications in many other areas. As the algorithms and techniques become more refined and efficient, they are implemented to test their pragmatic feasibility.